Fully Plastic Fracture Criteria for Metal Structures

Fully plastic fracture mechanics criteria for metal structures under quasi-static and dynamic loads are developed. The difficulties associated with extensive irreversible material response in determining fracture criteria for predicting crack initiation and growth in a fully plastic structure are addressed. Analytical models are correlated to experimental results of impact loaded mild steel and aluminum beams.